Chemical Applications of Lasers Workshop

James Madison University will offer a week-long workshop for college and university faculty. The workshop will focus on lasers and their application to solving chemical problems. The offering will consist of a one week intensive exposure to both the theory and practical application of laser technology to areas of interest to all branches of chemistry. The course will include (1) lectures on the fundamentals of lasers and related topics, (2) laboratory experiments to illustrate the principles presented in lectures, (3) lectures and laboratory experiments dealing with current applications of lasers to chemically interesting problems, and (4) an opportunity to engage in a special project of interest to the participant, the technology of which will be transportable to the participant's home institution. A major feature of this workshop is to provide exposure to laser technology at a level appropriate for incorporation at the undergraduate level. In addition to the NSF funds, participants' institutions will provide about 25% in travel expenses.